Evaluation of Distributed Electric Energy Storage and Generation

The objective of this Power Systems Engineering Research Center (PSERC) project is to develop a database of information for use by utilities and electricity end-users in evaluating distributed generation (DG) and distributed energy storage (DES). The information in the database can be used with utility, end-user, and investor economic evaluation methods to compare the various DG and DES technologies with central station generation and transmission and distribution improvement options.